Structure / Property Relationships on Ionic Transport in an Anhydrous Proton Conducting Polymer Electrolyte

Professor Jason Ritchie of the University of Mississippi is supported by the Analytical and Surface Chemistry Program in the Division of Chemistry to investigate the effect of chemical modifications on the ability of low molecular weight polyethylene glycol polymer electrolyte derivatives to conduct protons in an anhydrous state. New sol-gel based proton-conducting polymer electrolytes will be synthesized and the effect of the polymer's structure on conductivity and permeability will be quantified. Protocols will be developed for the physical and chemical characterization of the polymers and for the study of ion and small molecule transport within the polymer network.

This project has the potential to lead to the next generation of fuel cell electrolytes capable of high temperature, low humidity operation. The materials developed in this research may also have applications in electrochromic devices, catalysis, and as separation membranes. The project will provide excellent research and professional training for students in synthetic methods, characterization techniques, analytical measurements, and determination of physical properties.